ARFMP: Renovation of Geological Sciences Research Laboratories

This Academic Research Facilities Modernization Program (ARFMP) award from the Research Facilities Office provides funds to San Diego State University for the renovation and repair of the Industrial Arts Building so that it will accommodate the currently scattered geological and geophysical research and research training activities of the Department of Geological Sciences. This building was constructed prior to 1960 and has not been renovated since that time. The ARFMP grant of $300,000 and $489,583 provided by the grantee as cost sharing will be used to modernize these research and research training facilities. This project will address the need to improve the current research infrastructure by installing adequate utilities, lighting, ventilation, work spaces, and storage areas. The centralized location that will be established will preclude the current necessity of transporting contaminant- sensitive materials between facilities for analysis. This award contributes to the infrastructure of science by providing an improved environment for the conduct of research and for the training of quality undergraduates and master's degree students, and, notably, in the absence of a doctoral program, of postdoctoral students.